Workshop to Explore the Value of Applying Molecular Biology Tools in Environmental Engineering

0116929 Oerther This grant funds a workshop to explore the value of applying molecular biology tools in environmental engineering. The objectives of the workshop include providing answers to four critical questions: (1) Can junior faculty in the field of environmental engineering build successful and sustainable careers by developing, implementing, and conducting research using molecular biology tools? (2) What are the advantages and disadvantages of biomolecular technologies, and how should technique development and standardization proceed within the environmental engineering community? (3) How and to what degree should the field of environmental engineering teach molecular biology tools to students, practitioners, and regulators? (4) What are current and anticipated examples of knowledge provided by molecular biology tools that were previously unavailable, and what is the real value of this knowledge to the field? ***